A Steering and Visualization Environment

The PI's propose to develop an environment for visualization and interactive computational steering on a network of distributed workstations. The visualization and steering front-end being implemented will be capable of interacting using a client-server model with a computational engine, which could also reside on a parallel computer, in addition to the distributed network of computers which is the main target architecture. The target application of this environment will be 3-dimensional liquid crystal material in a confined geometry. The model used will be based on the Landau-de Gennes theory. In particular, one is interested in the changes in the degree of order and orientation of the liquid crystals as the temperature is varied. Knowledge about the properties of liquid crystals is of importance, for example, for the design of liquid displays. The target application is characteristic of a class of problems which would benefit significantly from computational steering, since it has multiple solutions with different symmetry structures and exhibits bifurcation or turning-point behavior for certain values of the determining parameters. Hence this is a path following or continuation problem.